Long-Path Intracavity Laser Spectrometer for the Measurementof Atmospheric Trace Gases

There are numerous important atmospheric trace gases with absorption lines in the visible to near ultraviolet. The absorption cross sections for these gases are moderate, but their extremely low concentrations (some below part-per- trillion levels) make them difficult to measure. The Phase I effort will investigate a technique for increasing the sensitivity of intracavity laser absorption spectroscopy, with application to the detection and measurement of trace gases in the atmosphere. The technique places a multipass absorption cell within the resonant cavity of a dye laser. With an intracavity multipass cell, the optical absorption pathlength can be increased by a factor of ten to thirty over the typical values of experimental systems. Intracavity laser spectroscopy may increase sentivity by a factor of ten or more over the previous state of the art. The general goal for Phase I research is to demonstrate and explore the behavior of a tunable dye laser that has an intracavity long-path multi-pass absorption cell. The applicability of such a laser system to the problem, of measuring weakly absorbing atmospheric gases will be evaluated. An atmospheric trace gas measurement instrument based on this system would have many of the properties desired in modern atmospheric chemistry research. These properties include: high sensitivity, fast response, point measurement capability and ruggedness.